International Travel to Attend the IARP Workshop on Medical Robotics in Vienna, Austria, October 1-2, 1996

9617773 Sastry Biomedical engineering represents an area of extreme interest to both the medical and engineering communities. Significant interaction is required to generate the synergism required to merge the engineering disciplines with physiological constraints. This grant provides funds for travel to a technical conference that brings together the researchers in both medicine and engineering to merge their efforts. It also provides an opportunity to allow practitioners to interface with researchers. ***